Theoretical Studies of Hadronic and Nuclear Dynamics

The recently developed effective field theory approach is known to be highly useful in our attempt to relate the properties of atomic nuclei to the underlying dynamics of the quarks and gluons, quantum chromodynamics. We aim here to make further developments of nuclear effective theory and its applications. Our investigations not only deepen the understanding of nuclear-hadron physics but also have important bearing upon nuclear astrophysics and search for physics beyond the standard model. Our study has particularly close connections with the on-going and future neutrino experiments that are meant to look for signals for non-standard physics. The budget allows us to hire a post-doctoral fellow to join our research effort. A qualified graduate student can be hired in years two and three.